Mathematical Sciences Research Equipment

The Department of Mathematics at Washington University in St. Louis will purchase six SUN Microsystems workstations and a central server which will be dedicated to support research in the mathematical sciences. The equipment will be used for several research projects, including: 1. The porous medium equation and families of nonlinear partial differential equations arising in harmonic analysis. 2. Numerical implementation of the phi-transform, and related operator-theoretic questions with applications to signal and image processing and to electromagnetic scattering. 3. Complex differential invariants, biholomorphic mappings and automorphims of domains, and eigenvalue asymptotics for the coupled beam equations. 4. Biological modeling, epidemiological studies and predicting AIDS population dynamics. 5. Magnetic resonance image processing in mamography.